Research in Collider Physics

This work carries out a physics program focused on testing whether the newly discovered Higgs boson shows any deviations from Standard Model expectations as well as searching for new particles, particularly those predicted by supersymmetric theories. To that end, the Notre Dame group will continue to maintain and operate the CMS electromagnetic and hadronic calorimeters, the CMS trigger, while expanding its efforts in upgrades of the CMS detector. This work is aimed at contributing to our understanding of the mechanism for electroweak symmetry breaking and the identity of dark matter. Although the proposed research activities already have a broad impact through their potential to transform our understanding of the fundamental laws of physics, the broader impacts of this proposal are further enhanced through a variety of educational and outreach activities that continue to build on Notre Dame's strength in those areas.